NSF Minority Postdoctoral Research Fellowship for FY 1997

Award Abstract Fellow: Juan Carlos Jorge-Rivera Proposal number: DBI 9707826 This action funds an NSF Minority Postdoctoral Research Fellowship for 1997. This fellowship supports research and training in the area of neuroendocrinology. The research and training plan is entitled "Functional role of a neurotransmitter system in sex-specific reproductive behaviors." Differences in neuronal organization and function in the brains of males and females provide the basis for sexually dimorphic behaviors. Benzodiazepine modulation of GABA-mediated currents are being determined in sexually dimorphic regions of the rat brain. The impacts of these currents on sex- specific reproductive behaviors mediated by these brain regions are also being studied.